Surface-Mediated Electrophilic Additions

A study will be made of the effect of silica gel- and alumina- mediated electrophilic addition reactions to alkenes and alkynes. In order to obtain a better understanding of the mechanistic features of this synthetically useful technique, a systematic study of the interaction of organic substrates with alumina and silica surfaces and the effects of those interactions on electrophilic additions to the substrates will be made. Particular attention will be given to delineating previously observed differences between alumina and silica gel surfaces in mediating electrophilic addition reactions, including differences in the steric demands of the active sites, and to developing techniques for effecting selective addition to one double or triple bond in the presence of another. A major study of the effects of polar substituents on surface-mediated electrophilic additions to alkenes and alkynes will also be undertaken, with special attention to directive effects of the substituents which may induce chemo-, regio-, or stereoselective additions of hydrohalides, halogens, water, hydrazoic acid, and hydrogen cyanide. %%% This grant from the Organic Dynamics Program supports the research of Professor Paul J. Kropp at the University of North Carolina. Preliminary studies by Dr. Kropp have shown that surfaces of alumina and silica gel can dramatically affect the addition of various compounds to double and triple carbon-carbon bonds. In the present study, the intimate details of alumina and silica gel mediated addition reactions will be investigated. The size of substituents bonded to double and triple carbon-carbon bonds, as well as the electron density in these multiple bonds, will be studied with regard to the possible courses that the addition reaction may take. The results of these studies will lead to important applications in synthetic methods for the preparation of organic molecules.